Mathematical Sciences: Nonlinear Waves

This work will emphasize new mathematical directions in the treatment of nonlinear wave equations in which geometry and dynamical systems play a significant role in the qualitative theory. The general theme of the work is to analyze singularity formation and stability properties for nonlinear equations arising in geometry and physics (particle field theory in particular). One particular objective is to continue studies on the nonlinear sigma model described by nonlinear maps from Minkowski space to complete Riemannian manifolds. The mathematical interest in these models is centered on the existence of solutions defined on all space-time and the development of singularities. Local existence results are known, and in higher dimensions solutions with small initial data can be shown to exist for all time. Recent results show that weak solutions with initial data of any (finite energy) for restricted target manifolds. Work will now be done in an effort to relax this condition. A second line of investigation focuses on the classification of differential equations close to critical points as first developed by Poincare. The fundamental problem is that of establishing analytic transformations which conjugate equations into linear ones. In the ordinary differential equations case, the answers lie in the nature of the spectrum (resonance). For partial differential equations the situation is different, although some positive results are available. Work will continue toward the establishment of both analytic and nonanalytic transformations for nonlinear Schrodinger equations.